Chapman Conference on Interactions Between Vegetation and Hydrological Processes in Semiarid Landscapes; September 9 -13, 2002, Taos, New Mexico

0139030
Weaver

Chapman Conferences are topical meetings sponsored by the American Geophysical Union (AGU) and are designed to promote opportunities not normally available through the format of larger meetings. Funds in the amount of $21,250 are being requested from the National Science Foundation to support participant travel for some domestic and international students and scientists. Applications for travel assistance will be evaluated and awards issued on a competitive and need basis. We expect to issue approximately 25 grants at an average of $800 per award. To be fully effective, approval of this proposal is needed not later than 01 March 2002.